Engineering Research Equipment: Motion Analyzer System

Equipment is being acquired for use in a number of fundamental investigations in thermal science. Specifically, a motion analysis system is to be purchased. This equipment will provide the capability to study new phenomena in boiling heat transfer, vortex dynamics, and turbulent mixing.